Monetary Policy, Corporate Financial Structure and Economic Fluctuations

The goal of this research project is to provide a comprehensive empirical assessment of the "lending" channel of monetary policy transmission. According to the lending view, monetary policy matters not only because of its effect on transactions balances, but also because of its impact on the supply of bank loans. Critical to the existence of a distinct lending channel is the condition that bank loans and other forms of credit, e.g., open market paper and trade credit, be imperfect substitutes for some borrowers. In other words, there can only be a distinct lending channel if some borrowers are partially "bank dependent." The contribution of this project comes from a through examination of both the aggregate and cross-sectional implications of the lending view. Using aggregate data, the investigators test: 1) whether monetary policy can indeed move loan supply around; and 2) whether these movements in loan supply in turn have meaningful consequences for investment in capital goods and inventories. The project uses micro data to determine whether the large inventory swings typically seen in recessions can be attributed to monetary- policy-induced changes in loan supply. The project determines whether bank-dependent firms cut their inventories more sharply than do non-bank dependent firms in the wake of a monetary contraction. Micro data is also used to study the responsiveness of inter-firm trade credit extensions to monetary shocks.